Multiple Description Coding with Correlating Transforms for Multiple Antenna Wireless Systems

An effective way of providing error resilience for multimedia transmission in a
communication system with a relatively small reduction in efficiency is multiple
description coding (MDC), which assumes the existence of multiple independent
channels between the transmitter and receiver, each of which can be temporarily
down or can experience burst errors. With MDC several coded streams, called
descriptions, are generated and transmitted over different channels. At the
destination, if all of the streams are received error free, than the signal can
be reconstructed at its highest level of fidelity. However, if only one or a few
descriptions are received in a usable form, the receiver can still reconstruct
an acceptable signal. All multiple description coding methods to date assume an
on-off channel model between the transmitter and the receiver; each link is
either broken, in which case the transmitted symbols, or packets, are lost
completely, or it functions properly, in which case the packets are received
free of errors. This model is appropriate for Internet transmission, but it is
not appropriate for wireless channels.

This study replaces the parallel independent on-off channel model with a
wireless channel model, such as a Rayleigh fading model. Communication is
performed using multiple transmit and receive antennas over the channel. With
these models the signal at any of the receive antennas is the superposition of
the transmitted signals from each transmit antenna independently faded.
Therefore, even if the descriptions at the receiver side are completely
independent, the received signal at each antenna will include some information
from each description. This research involves finding the best multiple
description coding strategy for these channels, the theoretical limits of such a
scheme, and the efficiency with which it can be implemented.